Brookings Link to Internet

9301886 Fishkin Brookings Institution has installed a TCP/IP network that links the equipment in the major academic and administrative buildings together. It requests support from NSF for connection of this campus network to SURAnet. SURAnet is the midlevel network located in the southeastern United States. It will provide operations management and information services and it will give Brookings Institution a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The Institution needs greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to collaborate with peers at other schools on common projects. Students and faculty research will benefit from the link. This is also a unique opportunity for the school to explore innovative educational resources. ***